Enhancement of Film Condensation Using a Porous Coating: A Theoretical and Experimental Investigation

An investigation of the enhancement of heat transfer in film condensation with the use of a highly conductive and permeable porous coating on a solid impermeable surface is to be made. A preliminary simple film condensation model will be expanded to develop a more complex model for predicting the condensation rate. Heat transfer rates for horizontal and inclined plates and tubes will be reported. The advanced model will incorporate matching conditions at the liquid/vapor interface which will account for the effects of vapor drag, forced convection and relative permeability. The main results of the theoretical research will be to document the dependence of the film thickness, velocity and temperature distributions, and local heat transfer coefficient on the porous matrix parameters and to compare these results to (i) the classical analysis of Nusselt and (ii) other advanced methods of enhanced film condensation (e.g., integral or fluted fin surfaces). The experimental part of the investigation will focus on the acquisition of film condensation heat transfer data from a porous coated surface and on photographic observations of the condensation process over a wide range of experimental conditions. Measurements of the heat transfer coefficient will be obtained by condensing Freon-113 on an inclined porous coated plate. Verification of the theoretical film condensation model, which predicts a considerable heat transfer coefficient, is anticipated by the experimental results.